Integrated Coastal Management Sustainability Education Project

The Integrated Coastal Management Sustainability Education Project is designed to help insure that
future practitioners of coastal management are well prepared to address the lack of sustainability of
environmental management processes in South-East Asia. In order to meet this goal, the results
from an ongoing research project which focuses on process sustainability will be translated into
educational materials, imbedded into an ongoing distance learning program and disseminated to the
public over the Internet.